Neural Simulation Demonstrations July 31-August 7, 1993, Bethesda, MD, and November 7-12, 1993, Washington, D.C

ABSTRACT 9316433 Bower "Neural Simulation Demonstrations at the Society for Neuroscience Annual Meeting and at the Second Annual Computation & Neural Systems Meeting" This project is to demonstrate state of the art computer simulation techniques in computational neuroscience at two major scientific meetings. One meeting, the second annual Computation and Neural Systems meeting will be held the first week of August in Washington DC. Approximately 300 scientists are expected to register and present a wide range of research results in computational neuroscience. The second meeting is the annual meeting of the Society for Neuroscience and will also be held in Washington, D.C. at the beginning of November. This meeting will register upwards of 15,000 neurobiologists and represents the premier meeting on neurobiology in the world. The primary purpose of the demonstrations are to expose large numbers of neuroscientists to the use of computer simulation techniques in neurobiology. In addition, the project will provide technical information on the methods used in these simulations, the range of simulation software currently available, and demonstrations of several aspects of new computer technology that are relevant to efforts to simulate and understand the brain. This project is supported by the Division of Integrative Biology and Neuroscience and the Computational Biology Activities Program.***